Three-Dimensional Nonrigid Motion Analysis

This Research Initiation Award is for theoretical and experimental research in visual tracking of non-rigid 3-D motion. Images of left-ventricle heart data will be used to test theories of 3-D image analysis using local curvature changes to fit analytic surface models. Application domains include radar, sonar, X-ray tomography, cineangiography, and magnetic resonance imaging, as well as human face recognition and studies of material deformation.